CI-ADDO-EN: Flexible Machine Learning for Natural Language in the MALLET Toolkit

Natural language processing, information extraction, information
integration and other text processing solutions are central components
of computer science, and key tools for addressing the ever-increasing
problems in information overload. Issues of information overload are
not only personal problems, but critical for business productivity,
national defense, and increasingly government decision-making and
transparency.

State-of-the-art natural language processing is increasingly based on
machine learning. However, the methodologies can be complex, and
software infrastructure necessary for such systems is generally
difficult to develop from scratch. To address this need we have
created MALLET (MAchine Learning for LanguagE) and FACTORIE (Factor
graphs, Imperative, Extensible), open-source software toolkit that run
in the Java virtual machine. They provide many modern
state-of-the-art machine learning methods, specially tuned to be
scalable for the idiosyncrasies of natural language data, while also
applying well to many other discrete non- language tasks.

The project will fill three critical gaps: (1) broadening these
toolkits' applicability to new data and tasks (with better end-user
interfaces for labeling, training and diagnostics), (2) greatly
enhancing their research-support capabilities (with infrastructure for
flexibly specifying model structures), and (3) improving their
understandability and support (with new documentation, examples,
online community support).

The project will have a direct positive impact on NLP and other
machine learning research, on teaching, and on collaborative research
activities. Well-designed toolkits not only help researchers avoid
duplicate implementation effort, but (a) they encourage sharing of
algorithms and code, and thus also cultivate increased collaboration
and intellectual flow of ideas; (b) they foster the communication of
detailed clarity of algorithms and scientific reproducibility; (c)
they help "level the playing field" by providing state-of-the-art
implementations of foundational building blocks and recent methods to
top-tier and small institutions alike; (d) they supply a teaching
tool, not only by making it easy for students to experiment with the
supplied research methodologies. Furthermore, by providing multiple
ready-to-use systems, non-programmers will have access to modern,
scalable implementations of text processing tools that will spread
knowledge and use of these techniques across fields, to the social
sciences, humanities, and bio-medical fields.

For further information see the project web site at the URL:
http://www.cs.umass.edu/~mccallum/nsf-mallet